Conference: 1999 Summer Gordon Research Conferences

The Gordon Research Conferences on various scientific topics, are held every summer to discuss recent findings and current thinking. Although participation is limited, the attendees usually consist of established scientists, young investigators who are making important contributions in these areas, postdoctoral fellows and graduate students. They are usually held in small isolated New England towns away from other distractions, and are conducive to the free exchange of ideas. Recently some conferences have also been held in Europe. These conferences have a recognized value for presenting the latest advances in research and also for indicating the future trends in research. The programs in the BIO directorate have given support for a number of years, to various Gordon Conferences which are relevant to the research their programs support. This award reflects the support of a number of programs in the directorate for various Gordon Conferences to be held in the Summer of 1999.